CAREER: Intent-Based Network Management

Intent-based Network Management

This research is developing a framework for better managing IP
networks using an intent-based network management approach to address
the performance and robustness issues associated with managing complex
IP networks. The goal is to automatically generate needed network
configurations by requiring only high-level objectives as input while
also ensuring network-level objectives such as performance and
reliability. The research develops design principles applicable to
managing both current and future networks and provides insight into
designing networks for manageability. Using abstraction-based
representations, the framework enables high-level specifications to
automate low-level tasks, so that one can directly manage the network.
Three main obstacles in today's network management are addressed:
insufficient visibility, inability to predict the outcome of network
configuration changes, and hidden errors in configurations due to
assembly-language-like interfaces. The research develops these key
techniques: (1) Measurement-based derivation of network protocols'
operational models to elicit undocumented limiting behavior. (2)
Methods to quantify limitations of measurement methodologies to enable
more accurate result interpretation. (3) Privacy-preserving,
incentive-compatible data sharing across networks. (4) Systematic
evaluation of trade-offs by developing metrics for quantifying network
properties and abstractions encapsulating device details. (5)
Real-time decision support for what-if analysis and automated
intent-based configuration generation. (6) Joint control and data
plane management.

The research will advance the state of the art in managing IP networks
by addressing key challenges in achieving automated, evolvable, and
robust network management. Any developed software will be publicly
available. The research results will be integrated into undergraduate
and graduate curriculum.